REU: Summer Intern Program in the Geosciences

Site grant support is requested for a Research Experience for Undergraduates (REU) program. The program gives undergraduates majoring in physics and closely related disciplines experience in the various geoscience research fields, with an emphasis on high- latitude studies. Many of the interns are the best students from small liberal arts colleges, and this program is likely their only opportunity for in-depth exposure to geophysics research before they make decisions regarding graduate school. In this program, interns are assigned to work with individual principal investigators on assigned projects. In addition, there is an organized series of weekly lectures and field trips to expose interns to other fields beyond the scope of their own project. Clerical support is also requested to continue a running survey of the impact of previous REU programs on educational and career choices of former interns, dating back to 1987.